MRI: Acquisition of Automotive Antenna Measurement Instrumentation (AAMI)

Proposal Number: 0521352

PI Name: Aloi, Daniel N.

PI Institution: Oakland University

Intellectual Merit: This grant funds the purchase a near-field antenna measurement system, for use in research and education on automobile antennas. The system will be a spherical near-field antenna measurement system capable of measuring on-vehicle antenna performance in the frequency range 800 MHz to 6 GHz for a variety of vehicle platforms. Major components include: (1) positioning and control equipment, which controls the motion of the vehicle platform; (2) signal source and receiver component, which generates the radio frequency test signal and measures the coupling between the desired source antenna and the antenna under test; and (3) the data collection and processing component. The research will involve vehicle-level measurement techniques, development of mathematical models for on-vehicle antennas and vehicle-integrated antenna designs.

Broader Impacts: This equipment will allow Oakland to contribute to the growing field of automotive telematics, which has relevance to safety (e.g. broadcasting location and occurrence of events like collisions and airbag deployment), to security operations (e.g. track or disable stolen vehicles), and to convenience (e.g., concierge services, navigation assistance, etc.). Industrial collaborations and support will be major aspects of this project. The equipment will also be used heavily in undergraduate education, in student training, and in outreach to minorities in the Pontiac, Michigan and Detroit, Michigan public schools.`